Neutrino Physics at Fermilab

*** 9512715 Johnson This grant supports research in particle physics by a faculty member, a graduate student and an undergraduate student. They are members of a team studying neutrino- nucleon interactions at the Fermilab Tevatron accelerator. The goals sought are precision determination of basic electroweak interaction parameters, tests of certain predictions of strong-interaction quantum chromodynamics and extended information on the structure of nucleons. ***